Low Temperature Processing of Thin Film Superconductor for Microelectronic Applications

9321232 Wang The technique of ion implantation has been utilized in the semiconductor industry. Thin film ceramic superconductors are expected to be integrated with semiconductors for future microelectronics applications. The prospect of having ion implantation for superconductor thin film processing would be extremely desirable, since it is compatible with present microelectronics technology. To date the overall effort on the utilization of ion implantation for superconductivity processing is quite limited. ***